The Granite-Rhyolite Province: An example of Middle Proterozoic Crustal Growth and Evolution

This collaborative proposal with Robert D. Shuster aims to study the growth and evolution of the Middle Proterozoic Granite- Rhyolite Province. This terrane underlies the south central North American continent and except for three areas of outcrop, is buried by Phanerozoic sedimentary rocks. Age constrained samples from outcrops and from cores and cuttings housed at the University of Kansas will be used to determine their Pb and Nd isotopic compositions and chemical (major, trace, and REE) compositions. This study will be directed at constraining potential source areas, processes, and tectonic models for the formation and evolution of this large area of highly evolved and unique Proterozoic crust.